Inert-Transition Metal-Phosphate Complexes: Synthesis, Structure and Reactivity (Chemistry)

A large part of the energy currency of living systems is stored in phosphodiester bonds and released through metal-catalyzed phosphate hydrolysis. Thus, it is of fundamental importance to understand the nature of metal-phosphate bonding and the mechanism of metal-promoted phosphate hydrolysis. Substitution inert transition metals such as Co and Rh are extremely valuable as model systems of the biologically active metals which are too labile for structural and mechanistic studies. Two key advantages of Rh(III) over Co(III) are the following: Rh(III) complexes are extremely inert and should allow us to isolate and characterize analogs of reaction intermediates which have been proposed for the Co(III) systems. Second, Rh will provide important structural and mechanistic information in NMR studies both by direct observation of the 103Rh nucleus and by coupling to other nuclei in the system. Dr. Torres will synthesize, isolate and characterize Rh(III) complexes of the type ıRhLnPx! where L=ligand P=phosphate with mono-, di-, and triphosphate ligands and with nucleotides (ANP, GNP, CNP and UNP). She will elucidate the phosphate-metal coordination and isolate and characterize key intermediates in the phosphate hydrolysis reaction. Dr. Torres will lecture in the advanced inorganic and bioinorganic chemistry courses and organize a symposium through the Chemistry Department and the Women's Studies program of the Graduate Institute. Female chemists from industry, government and academia will be invited to present their research work to undergraduate students, and to discuss career opportunities and choices for women in science. In addition, she will collaborate with the Women's Section of the American Chemical Society in Atlanta in their youth (junior and senior high school) activities program. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.